A Diversity-Embedding Approach for High-Rate Reliable Multimedia Wireless Communications

There is a fundamental tradeoff between rate and reliability (diversity)
in multiple-antenna wireless communications. This research views diversity
as a systems resource and explores allocation of this resource to achieve a
desirable rate-diversity tradeoff in multimedia wireless communications.
Multimedia data is often complex and consists of various components with
different rate/reliability requirements. For example, a real-time data
stream is a candidate to receive more diversity (protection) than
non-real-time data. Other examples include complex data streams such as
compressed video, whose various components require different levels of
error protection. Over-provisioning of diversity to one data component
will mean the loss of rate to that and other data components, a waste of
system resources.

The focus of this research is on the creation of a flexible pool
of space-time resources rather than the design of fixed
maximum-diversity schemes. The investigators design high-rate
space-time codes that have a high-diversity code embedded within them.
This allows a form of wireless communications where the high-rate code
opportunistically takes advantage of good channel realizations
while the embedded high-diversity code ensures that at least part
of the information is decoded reliably. The proposed
diversity-embedding codes do not require channel knowledge at the
transmitter and outperform time-sharing schemes. Using the proposed coding scheme, each traffic
type constitutes a transmission layer that operates at a suitable
rate-diversity tradeoff point. The investigators explore this point of view with
designissues, specific code constructions, and application to multimedia
communications.